Rapid Solid-State Synthesis of Materials

9315914 Kaner In this research, metathesis reactions are used to prepare refractory and electronically and magnetically important materials. These reactions are effective for the rapid synthesis (< 2 s) of a large variety of materials. Targeted systems include refractory main group borides, carbides, nitrides and phosphides and conductive refractory transition metal nitrides and phosphides and magnetic rare earth phosphides. Additionally, special efforts will be made to refine methods for the preparation of metastable high temperature compounds. Further studies will examine the processing of ceramic materials, specifically studying the effects of varying crystallinity and particle size on the densification and mechanical properties of hot-pressed samples. % % % Direct solid-state reactions often are complicated by the need for long reaction times at elevated temperatures. Metathesis reactions allow the preparation of materials in seconds. In this research, metathesis reactions are used to prepare refractory and electronically and magnetically important materials. The effects of varying crystallinity and particle size on the densification and mechanical properties of hot-pressed samples will be explored. ***